RUI: Research in Theoretical Atomic Physics

This project has two components: (1) an investigation of possible signatures of violations of fundamental symmetries in atomic systems; (2) the structure and evolution of Rydberg wave packets and their behavior in external fields. The analysis of signatures of Lorentz and CPT violation will be extended to additional atomic systems and to other symmetries. The continued studies of Rydberg atoms will involve developing new techniques for studying wave packets and revivals in nonintegrable systems.